TC: Small: Collaborative Research: Strengthening Forensic Science for Network Investigations

The standard instrumentality for the criminal acquisition and
distribution of images and video of child sexual exploitation is
peer-to-peer (p2p) networks. Over 160,000 users based in the US
are sharing child pornography (CP) using Gnutella alone. Past
studies have found that: 21% of CP possessors had images
depicting sexual violence to children such as bondage, rape, and
torture; 28% had images of children younger than 3 years old; and
that 16% of investigations of CP possession ended with discovery
of persons who directly victimized children.

The proposed work aims to make significant advances in forensics
methods of investigating criminal acts on peer-to-peer file
sharing networks. The project represents a unique
multidisciplinary collaboration between computer science and
criminology with close participation from existing law
enforcement partners.

Intellectual Merit. The project makes the following broad
contributions:

- It proposes novel methods of tagging a remote computer over the
network with information that can uniquely identify it during a
forensic examination. These serve as both identifiers and as
indicia of intent.

- It proposes to gather a foundational dataset regarding the
prevalence and rate of spread of child pornography on p2p
networks. Further, it proposes to measure and quantify the
relationships between child abuse and the trading of child
pornography on p2p networks. Finally, it proposes the
development of models to detect the trafficking of deliberately
hidden child pornography on these networks.

Broader Impact. The project aims to reduce the number of children
sexually exploited each year by thwarting the trafficking of
their images on p2p networks and via the capture of the contact
offenders that rape, torture, or otherwise brutalize them. This
work will increase cross-disciplinary collaboration between
computer science and criminology and between law enforcement and
academia; effect technology transfer to law enforcement in the
field of online child pornography investigations, which will help
reduce the number of victims of crimes in the future; and
facilitate broad educational outreach and recruitment of
under-represented minorities in undergraduate and graduate
research in digital forensics.

For further information see the project web site at the URL:
http://prisms.cs.umass.edu/CNS-1018615